West Antarctic Volcano Exploration (WAVE II)

This award supports a program of detailed field and laboratory studies of Cenozoic volcanic rocks in Marie Byrd Land, Antarctica. This area, one of the earth's largest volcanic provinces, contains important records of Cenozoic glacial-volcanic history, petrogenesis, and tectonic evolution of West Antarctica. This project will extend detailed field coverage to Marie Byrd Land volcanoes which are still known only on a reconnaissance level. Subsequent laboratory studies will include geochemical and isotopic analyses, radiometric dating, and surface exposure dating. This is an international cooperative program involving U.S., U.K., and N.Z. geoscientists.